A New Ocean Heat Flux Observing System

9419535 Suomi The objective of this research is the testing of a new in-situ ocean hat flux instrument designed to measure the heat flux in the molecular conduction layer near the water surface; thus,it measures the combined heat loss owing to evaporation, sensible transport and radiation. The device can be deployed on either drifting or tethered buoys. The proposed tests, in cooperation with Professor Gabler, University of Miami, include comparisons between the flux plate and eddy correlation devices installed in salt water near Miami, These tests should establish the merit of the heat flux plate, its design limitation, if any, and perhaps preferred ways to deploy the device at sea. ***